RUI: An Inventory of Scaled Chrysophytes and Diatoms in Seepage Lakes Along the East Coast of the United States: A Basis for the Future Conservation of Microscopic Organisms

DEB-9972120
Siver

The primary focus of this project will be to survey and inventory
the scaled chrysophyte and diatom floras in seepage lakes and ponds along
a transect from Maine to Florida, with a focus on coastal Maine, Cape Cod,
the Carolina Bay region and central Florida. Although seepage lakes from
each region along this transect differ in their origin, they are similar
in being acidic, poorly buffered, and high in sodium and chloride
concentrations. We plan to critically examine collections in order to
fully depict each flora, describe new species, gain knowledge on rare
taxa, and identify habitats that are particularly rich and diverse with
these organisms. We will use our data to address the following question.
How many waterbodies within each region, or between all regions, will need
to be set aside and protected in order to conserve the biodiversity
contained within these two organismal groups? A basic understanding of
this question is needed before conservation and biodiversity management
plans can be designed and implemented for these and other microscopic
taxa. We will also continue to develop our World Wide Web-based resources
to inventory, archive and disseminate research results using searchable
databases, expand our library of images of important taxa, and to continue
to expand our ecological knowledge of these siliceous algal groups.
Lastly, we will train a group of undergraduates in the techniques and
approaches used in the taxonomy and identification of scaled chrysophytes
and diatoms.